SBIR Phase I: Passive Cooling Materials for Transparent Applications in Refrigerated Trucking and Solar

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is to overcome the barrier to transparent passive radiative cooling materials that are applicable to commercial environments. The project develops a transparent passive cooling thin-film applicable to situations that lose efficiency when heated, and where both mechanical and thermal stress are involved, for example, over advertisements on refrigerated trucks, or on the front face of solar panels. It will provide the simultaneous qualities of transparency in visible wavelengths, durability to withstand the elements, flexibility for ease of application, high cooling power to address customers' pain points, and manufacturability in a roll to roll format to minimize costs. The technology has the potential to provide a 25-80% increase in fuel efficiency via application of the thin-film to the outside of refrigerated truck trailers. The benefits to customers include: fuel cost savings, reduced emissions, allowing regulatory requirements to be met, decreased maintenance and replacement costs compared to refrigeration units and in-truck insulation in truck, as well as temperature maintenance in maximum heat.

This Small Business Innovation Research (SBIR) Phase I project seeks to develop a thin-film product that could revolutionize cooling technologies across a number of industries. The demand for temperature-sensitive goods is expected to continue to grow significantly. To address the need for refrigeration with reduced fuel costs and emissions, the project is developing selective photonic emitters in thermal wavelength windows such that instead of heat being effectively enclosed in an insulating thermos (the atmosphere), they are exposed to a vast cold sink of space. The result is a revolutionary method of entirely passive heat management. This approach will be optimized in a thin-film photonics material that provides significant cooling to refrigerated truck trailers, saving refrigeration fuel costs. Phase I research objectives will establish proof of feasibility and include producing and testing promising material combinations at wafer-scale, testing to ensure that the material's qualities transfer to a commercially relevant size, and performing a small-scale test with potential customers.